Estrogen and Progesterone Receptors: Ligands and Conformation Changes

9407376 Skafar The proposed research will investigate the mechanism of action of the steroid hormones estrogen and progesterone. The research will use quantitative studies of the equilibria and kinetics of ligand-binding, dimerization, and the DNA- binding properties of the estrogen and progesterone receptors. Molecular biological techniques will be used to construct receptors containing only the hormone-binding regions, or the DNA+hormone-binding regions. The ligand- binding, dimerization and DNA-binding properties of these constructs will be compared with those of the full-length proteins. In this way, the interactions between the different domains of the receptors during the conformational changes induced by ligand-binding can be dissected. ***